Dissertation Research: Patterns, Mechanisms and Consequences of Oviposition Behavior for Recruitment of the Mayfly, Baetis Bicaudatus

Recruitment determines the initial density of populations, and may thereby critically
influence their abundance. Little is known about recruitment of aquatic insects and its
influence on the abundance of larvae. We combine surveys, mechanistic and large-scale
experiments in natural streams to determine the patterns and mechanisms of recruitment
of new individuals to populations of the mayfly Baetis bicaudatus, and how small and
large scale variation in recruitment interact to influence abundance of larvae.
Methods include observations of patterns of oviposition, and field experiments to
understand the mechanisms and fitness consequences of oviposition behavior. Extensive
surveys relate patterns of recruitment to temporal and spatial variation in mayfly larval
abundance. A large-scale field experiment manipulating the availability of oviposition
sites in 12 natural streams will test whether populations of Baetis larvae are recruitment
limited.
This proposal will make significant and unique contributions to the understanding of
recruitment of aquatic insect populations, and its influence on subsequent insect
abundance. Proposed research will also generate models for predicting how mechanisms
(i.e. oviposition behavior) affect patterns of populations at local and regional scales.
Furthermore, it will provide a foundation for understanding population dynamics of
aquatic insects important to designing realistic and relevant conservation programs.